Conference on Time-Resolved Vibrational Spectroscopy, Princeton University, June 11-16, 1989

Professor Thomas G. Spiro is supported by a grant from The Physical Chemistry Program to provide travel support for graduate students and postdocs to attend an International Conference on Time-Resolved Vibrational Spectrosocpy. The conference will be held on The Princeton University Campus from June 11 through June 15. Several outstanding international scientists in the area of time-resolved vibrational spectroscopy have accepted invitations to provide overview lectures. It is estimated that approximately 200 scientists will attend the conference. The funding provided by this NSF grant will be used to provide 10 travel grants for graduate students and postdocs to attend this conference.